Workshop for Integrated Symbolic-Number Computing; University of California, Berkeley; July, 1992

This workshop is to be held in conjunction with the 1992 International Symposium on Symbolic and Algebraic Computation in July of l992, at the University of California, Berkeley. The area of integrated symbolic-numeric computing is an emerging discipline which combines these methods for scientific and engineering problem solving. In addition, high performance computing environments shall be considered.